Acquisition of Equipment for Polymer Characterization

This award provides partial funding for the the acquisition of a polarizing light microscope to be used in the principal investigator's research on the morphology of polymers.